Directed Improvisation: A Paradigm for Multi- Agent Human-Computer Collaboration

The proposed project will investigate directed improvisation, a new paradigm for multi-agent human-computer collaboration. Basically, one or more users direct one or more computer characters with abstract instructions and constraints. The characters improvise courses of behavior that follow the directions, express distinctive styles of behavior, and meet other objectives. The resulting "work," comprising the individual and interactive behaviors of the characters, reflects a collaboration among all of the human and computer participants. Human users collaborate with one another to determine the abstract structure and quality of their characters' behaviors. Computer characters collaborate with users and with one another to improvise the details of their individual and interactive behaviors. Objectives of the project are: (a) develop a model of the directed improvisation paradigm for multi-agent human- computer collaboration; (b) develop and implement a domain- independent model of computer agents capable of performing directed improvisation in single-agent and multi-agent configurations; (c) develop and implement a domain-independent model of interfaces for one or more human users to collaborate with one another while directing the improvisational behavior of computer agents; (d) instantiate the implemented models of agents and interfaces in an experimental testbed application: a Computer-Animated Improvisational Theater (CAIT); (e) demonstrate, analyze, and evaluate the directed improvisation paradigm in the CAIT testbed. Directed improvisation is a promising new paradigm for multi- agent human-computer collaboration, potentially useful in a diverse set of applications. The CAIT testbed also has intrinsic significance as a pioneering example of enjoyable experience- based learning environments, a new kind of computer game, and a new artistic "form" for interactive stories and entertainment.